Metal-Centered Star-Shaped Polymers and Block Copolymers

This award is a Research Planning Grant in the Organic Dynamics Program of the Chemistry Division. With these funds, Professor Cassandra Fraser of the University of Virginia will study metal-centered star-shaped polymers and block copolymers. Metal complexes will serve as the central cores of the polymers and the polymer arms will be generated using living polymerization techniques. Variation of the metal complex will allow for a wide variety of possible three dimensional molecular structures, all unknown, with much flexibility in the properties and in the domain structure. The work will explore the methodology for preparation of such a class of materials and will develop characterization protocols based on standard spectroscopic techniques and on multi-angle laser light scattering. Systematic and predictable variation of the properties of materials offers a prime strategy for optimization of their behavior. This work will explore a new series of polymeric materials which are expected to exhibit unusual properties and, in the long run, to lead to potential artificial enzymes and to materials sensitive to heat, light, and electricity.